Environments of Quasi-Stellar Objects and Radio Galaxies

The central theme of the research program is to study how the nuclear activity present in luminous quasi-stellar objects (QSO)and powerful radio galaxies is related to their environments and what physical mechanisms are the cause of these phenomena. The studies will include an intensive study of the inner structure of QSO host galaxies at low redshifts, an imaging and spectroscopic investigation of a complete sample of radio galaxies, and a program to determine morphological properties of rich clusters associated with QSOs by identifying specific galaxies at QSO redshift to faint limiting magnitude. The Principal Investigator is regarded as a world leader in this research area.